2001 Laser Diagnostics in Combustion Gordon Research Conference

This award supports the attendance of students and postdoctoral researchers at
the Gordon Research Conference on Laser Diagnostics in Combustion to be held July
1-6 in South Hadley MA.